Studies in Reaction Theory

This work will continue nuclear theory research relevant to heavy-ion collisions at intermediate and high energies. The topics include developing a stochastic treatment of quantum propagators, string model simulations of ultra-relativistic nuclear collisions and quasi-classical approximations of the quantum Liouville equations.